HBCU: 21st Century Integration of Science and Mathematics: Training Great Minds for the Future

Miles College

This proposal represents, a strategic plan to address the under representation of
minorities in the science, mathematics engineering and technology (SMET) related
disciplines. The strategies proposed are intended to develop a systematic educational
continuum from the undergraduate to the doctorate level.
Miles College, located in Birmingham, Alabama, is one of the nation's
Historically Black Colleges and Universities (MCU). It was founded in 1905 under the
aegis of the Christian Methodist Episcopal (CME) Church, and receives continuing
support from that body. It had a spring 1998 enrollment in excess of 1400 students, the
largest enrollment in recent history.
To accomplish the initial goal of increasing the number of minority students
enrolling at Miles, the faculty will assist in recruiting qualified students and revising the
support system for said students. There will be an increased focus in developing research
opportunities for the college students with concomitant experiences for public school
students. Monthly science seminars will be conducted at the College. Students and
selected faculty will mobilize themselves and deliver parallel points of interest in the
public school setting as part of the recruitment effort of qualified students. Selected
public school students will intern in the summer on the Miles College campus for greater
involvement in research.
The research interest must produce the kinds of results that will maintain student
interest and will foster community for our programs. As this interest grows, the ability to
attract private and public partners will increase concomitantly. The private partners will
help in creating internships and cooperative learning experiences for Miles College
students. The research commitment is already developing and private partners have
indicated that they will begin to make arrangements to accommodate the interns from
Miles.
Faculty development will be manifest in multiple facets: recruitment of
researchers interested in teaching and training, continuing education and retraining for
seasoned professionals, current faculty will sharpen their skills by conducting in-service
for peers and students and there will be emphasis for junior faculty to earn advanced
degrees. These efforts will harness the type of faculty that will set Miles College on the
track to achieve the scientific prominence that attains the renown of its sister colleges in
the area and beyond.